Use of Sedimentary Nitrogen and Carbon Isotopic Composition for Reconstruction of Past Surface Nutrient Utilization in Antarctic Waters

A major continuing question in paleoceanography is how the paleohistory of the atmospheric carbon dioxide content is related to the contemporaneous productivity of the oceans. In the Southern Ocean where nitrates are one of the major phytoplankton nutrients, it is possible to estimate the regional paleoproductivity by investigating the variability of nitrogen isotopes in sediment cores. It is known that when nitrates are abundant in the euphotic zone (as in antarctic waters today), phytoplankton discriminate against nitrogen-15, resulting in biomass and sinking particulates isotopically lighter than the dissolved nutrient pool. When nitrate concentrations decrease as a result of biological utilization, the sinking particulates become isotopically heavier. It is expected that the downcore variations in nitrogen-15 reflect time variations in the predominance of these surface processes. Other productivity or nutrient indicators, such as the Cadmium/Calcium ratio, carbon-13 in calcite, or opal accumulation have presented conflicting interpretations of the paleodistribution of both productivity and surface nutrients. Sedimentary nitrogen- 15 is expected to specifically record past changes in biologically mediated nutrient depletion. This study will confirm the relationship between nitrogen-15 and nitrates in surface waters using recently collected samples in the Indian Ocean sector, and use sediment analyses to reconstruct surface nutrient utilization in several sectors of the Southern Ocean. Existing cores with established stratigraphy will provide sufficient coverage of the targeted regions.